Long and Medium-Term Research: Cirrus Cloud Studies With a Counterflow Virtual Impactor

Long & Medium-Term Research: Cirrus Cloud Studies with a Counterflow Virtual Impactor This award is under the Long and Medium-Term Research at Foreign Centers of Excellence Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support an twelve-month postdoctoral research visit by Dr. Theodore L. Anderson to work with Professor Jost Heintzenberg of Stockholm University. The Counterflow Virtual Impactor (CVI) is a well-established device for collecting liquid hydrometeors. Unlike other cloud water collectors, the CVI should perform equally well in cirrus (ice) clouds, allowing microphysical data to be collected which could help to resolve such fundamental questions as whether cirrus act as a positive or negative feedback in greenhouse-gas-induced climatic warming. A key goal of this project will be to characterize and develop a method of controlling the collection of large hydrometeors by the CVI. Other goals include (a) improving the overall CVI sampling and analysis system so as to lower the detection limits for both condensed water and hydrometeor number concentration and (b) optimizing all instruments for the low pressure cirrus environment. The award recommendation provides funds to cover international travel, a stipend for twelve months and a dependents' allowance.